Exploring Data and Methods to Assess and Understand the Performance of SSI States: Learning from the Cases of Kentucky and Maine

The proposed study will identify and fill the gaps between currently available data and methods and desired ones in assessing and understanding the performance of SSI states. It will address the following research questions:

1. What information is available on the academic performance of a system?
2. What methodological challenges are posed by multi-level, multi-dimensional time-series data such as the NAEP and state assessments in understanding factors affecting system performance?

The researchers will examine these issues in two SSI states, Kentucky and Maine. They will examine whether and/or how the current NAEP and the states' own student assessments can be used to assess systemwide academic performance and determine if the national and state assessments produce consistent results on the proficiency of different groups of students. The study team will compare the results of hierarchical liner modeling methods with conventional methods of data analysis.